Mechanism of Bromimetric Cationic Cyclizations

The primary objective of this three-year U.S. Yugoslav cooperative research project between Stanko Borcic of Zagreb University and Vernon J. Shiner of Indiana University is to investigate the mechanism of certain chemical reactions (cationic reactions of polyolefinic substrates) which might be expected to yield cyclized products. Fundamental understanding of these reactions is expected to make significant contributions to chemical and perhaps biochemical theory. Past collaboration has been highly successful leading to many joint publications. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is funded through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal Yugoslav institute. Dollar funds are included for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.